Talking Across Fields

This award provides travel support of participants to the conference titled "Talking Across Fields" will take place at Stanford University, on January 31-February 2, 2020. It is expected to gather about 17 talks given by some of the world leaders in combinatorics, probability, and statistics, and more than fifty other participants.

The purpose of this meeting is to explore the fundamental connections between probability, combinatorics, algebra, and their applications in statistics and scientific computing. In particular, the meeting will explore recent advances in rates of convergence of Markov chains, exchangeability, random graphs, and sampling, and the foundational role they play in our understanding of randomness, symmetry, and computation.
The conference webpage can be found at the URL https://statistics.stanford.edu/conferences/talking-across-fields